WOCE Hydrographic Program Sections Along 88 Degrees West and150 Degrees West

This proposal is to conduct a hydrographic cruise in the Pacific along longitudes 88 and 150 degrees west. As a central element of the World Ocean Circulation Experiment (WOCE), the crusie will provide measurements of temperature, salinity, nutrients, and many additional chemical tracers useful to describe the ocean ciruclation. This propsoal is to provide the technical sampling and analysis for the entire program.